ADVANCE Leadership Award

The proposed activity aims to improve the recruitment and retention of women in
engineering academia and to enhance career development of women engineering
academics by addressing publications in refereed scholarly journals.

This project will develop a CD ROM that demystifies the journal publication process.
The CD ROM will contain both text material and digital video. An overview of how the
system works and the differences, both in procedure and in impact, of journal articles,
journal short papers, journal notes, refereed proceedings and book chapters will be
documented in clear and general terms. How the editorial board of a journal operates
from editor-in-chief down to individual reviewers will be explained with suggestions on
how to become involved with a journal in an editorial capacity. Then, a set of best
practices case studies that follow engineering papers from first submittal through
publication will be included. These will take the user through the review and revision
process step by step and at least one case study will involve a rejected paper that is
successfully transformed for another journal. The video clips will provide comments and
discussion by article authors, journal editors and reviewers, using women engineering
academics where possible. While the focus is on journal papers, this CD ROM will
assist the users in developing other peer reviewed publications including proposals.
Dissemination will be in two phases and will be aligned with assessment efforts
involving surveys and interviews. This project will benefit a large number of women
academics and potential academics by addressing an issue vital to scholarly success.

This project is supported by the NSF ADVANCE Program. The overall mission of the ADVANCE Program is to increase the participation of women in the scientific and engineering workforce through the increased representation and advancement of women in academic science and engineering careers.